Numerical treatment of singularities and the Generalized Finite Element Method: theory, algorithms, and applications

Numerical Methods for Partial Differential Equations (PDEs) are an
essential ingredient in many areas of Sciences and Engineering. Often
in the applications of PDEs, one has to deal with additional
difficulties caused by the singularities in the geometry, the
coefficients, or the boundary conditions. The main goals of this
proposal are to obtain more efficient numerical methods for equations
with singular solutions and to develop user friendly implementations.
The PI and his collaborators will design improved meshes that provide
optimal rates of convergence for the Finite Element Method in three
dimensions for elliptic equations on polyhedral domains with
non-smooth interfaces. These equations form one of the basic
ingredients in many other applications. The results will be extended
to quasi-linear elliptic equations and to evolution equations. For
some of these equations, spaces with higher smoothness or other additional
properties are sometimes needed, and the Generalized Finite Element
Method will be used for these purposes.

The proposal will contribute to the formation of graduate and
undergraduate students by advising and mentoring them and by
integrating them in research projects. The PI also plans to continue
to run an Interdisciplinary Seminar featuring outside speakers,
including non-mathematicians. The proposed research will lead to the
design and testing of new and improved numerical methods for Partial
Differential Equations (PDEs) of interest in Sciences and
Engineering. The resulting numerical methods will be presented and
implemented in a way that makes them accessible to
non-mathematicians. It will also contribute to applying mathematical
results in practice by interaction with researchers from other fields,
including the private sector. It will also contribute to the creation
of specialists able to use advanced theoretical tools to handle
practical problems. He will also introduce numerical methods and the
use of computers in more traditional undergraduate courses. The PI
also plans to popularize mathematical questions that arise from
practice among mathematicians. The theoretical results and the
resulting numerical methods will have applications in Mathematical
Physics, Quantum Chemistry, Biology, Finance (Risk Management and
pricing of Financial Derivatives, or Options), and other areas.